CHAI - Strengthening Cyber Infrastructure for Enhanced STEM Education and Research at TMCC

A goal of the Tribal Colleges and Universities Program (TCUP) is to increase the science, technology, engineering and mathematics (STEM) instructional and research capacities of specific institutions of higher education that serve the Nation's indigenous students. Expanding the instructional, research, and development capacity at these institutions expands the opportunities for students to pursue challenging, rewarding careers in STEM fields, provides for research studies in areas that may be locally relevant, and encourages a faculty community to look beyond the traditional classroom for intellectual and professional growth. This project aligns directly with that goal by strengthening the STEM cyberinfrastructure for instructional and research activities. The project aims to enhance cyberinfrastructure and cybersecurity necessary to facilitate development of the institution in STEM fields and for the protection of sensitive data.

The project upgrades specific STEM IT resources at the institution to improve the resiliency and security of STEM operations, data management, teaching, and research enterprises. Improvements to Turtle Mountain Community College’s (TMCC’s) network and cybersecurity foster the college’s ability to implement advances in STEM instruction and research. The activities for developing STEM cyberinfrastructure directly support current and future projects, including the revitalization of the Ojibway language.